SGER: Calibration of FeTi-Oxide Thermobarometer at 700-900 Degrees Celsius and High Oxygen Fugacity

Evans
0000904

This project has as a major goal, to recalibrate the Fe-Ti-oxide thermometer for realistic conditions of eruption of intermediate to silicic compositions. The experimental work proposed will be conducted in the CNRS laboratory in Orleans, France, by hydrothermally equilibrating a synthetic rhyolite composition doped with substantial but variable amounts of FeO, TiO2 and MgO at controlled T (700-900 degrees C), P, and O2 (NNO+1 to NNO+3) conditions. These experiments will establish the composition dependence of coexisting ferrian ilmenite and Ti-magnetite, with and without Mg, on T and O2 in the range in question. Solution parameters that correctly accomodate the solution of geikielite into the rhombohedral Fe-Ti oxide will be required to fit these experiments. The results of this experimental work should help increase the applicability of this popular geothermometer to rocks that were previously outside the appropriate compositional range.